Computer Science and Computational Approaches to Music for Middle School and High School Students

This Small Grant for Exploratory Research (SGER) supports a pilot study at New York University
(NYU), under which computer science (CS) is being taught to math and music savvy children in
grades 7-12. They are learning how CS principles apply to music, a technical field with known
computational applications including sound manipulation, music information retrieval, and musicrelated
artificial intelligence. The focus is on fundamental scientific concepts like algorithms and
data structures and how they apply to technical problems. This contrasts with previous approaches
to teaching pre-college CS, e.g., AP computer science classes focus on a currently popular computer
language (JAVA) and other classes focus on currently popular computer applications (word
processing, spreadsheets, etc.). Follow up studies are anticipated for teaching other computational
domains, such as robotics and artificial intelligence approaches to solving games. Again, the focus
will be on formal computational problem solving, rather than the use of currently popular computer
languages and applications.
This study explores the incorporation of basic CS into the middle/high school curricula, a
significant question for the educational and scientific research communities. The ubiquitousness
of computational thinking in current intellectual thought makes this an extremely significant line
of research.
The teaching materials created in this pilot study will be available on the world wide web and
results will be submitted for publication. This pilot study is intended as a stepping stone to a real
computer science curriculum for pre-college students, which should prove essential to the future
economic and intellectual development of the United States.